PostDoctoral Research Fellowship

This award is made as part of the FY 2022 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Yujie Xu is "Shimura Varieties and their Integral Models: the Langlands Program, Motives and Algebraic Cycles, Arithmetic Intersection Theory" The host institution for the fellowship is the Massachusetts Institute of Technology, and the sponsoring scientist is Wei Zhang.